Growth and Rotation Rates in Tectonometamorphic Garnets of Pelites as Measured by Sr/Rb Isotope Variations

Dating the age and duration of metamorphism remains one of the most difficult tasks to be attempted by geochronologists. Data on the length of time required for heating and metamorphism, however, are a critical keystone for building accurate geophysical models of processes of heat and mass transfer in the Earth's crust. The proposed research will attempt to determine the growth rate of garnets by measuring variations of 87Sr/86Sr in growth shells and in their groundmass. Problems are anticipated in completing the difficult task of precisely analyzing isotope ratios of very small samples. Furthermore, the success of the method rests on the viability of untested assumptions regarding the behavior of the groundmass as a homogeneous reservoir. Progress is impossible in science unless risks are taken. In the present case, risks are acknowledged but the potential great significance of a successful result warrants support for a feasibility study. Successful completion of the proposed research will lead to measurement of the rates of mineralogical reactions, rates of devolatilization, and rates of heating. By dating garnets that were rotated during growth, it should be possible to determine rates of strain during crustal deformation.